Applications of the Modified Faddeev Equation

This RUI award continues research into the collisional interactions of three, exotic charged particles. Calculations on positron/H atom collisions, electron/positronium collisions and systems of interest in muon catalyzed fusion, will be undertaken. The PI has been extremely successful in training undergraduates in atomic physics.